Variational Problems in Symplectic and Kahler Geometry

Abstract

Proposal: DMS 9802487
Principal Investigator: Jon Wolfson

In this proposal we will continue our study, joint with R. Schoen, of
variational problems for lagrangian submanifolds: Let M be a
symplectic 2n-manifold equipped with a compatible metric. Given a
homology class in M that can be represented by an immersed lagrangian
submanifold, find a lagrangian that minimizes volume among all
lagrangians that represent this homology class. The minimizer is
known to exist as a lagrangian rectifiable varifold, so the focus of
our research is on the regularity of these minimizers. When the
ambient manifold M is Kaehler-Einstein it may be possible to show that
the lagrangian minimizers are stationary, in the classical sense. We
hope to develop a good regularity theory of lagrangian minimizers and
then to use these minimizers to study the geometry of the ambient
Kaehler or symplectic manifolds.

Many problems in physics and mathematics have solutions that are
obtained via an optimization procedure. In this project we will study
a minimizing procedure in differential geometry. We minimize volume
among generalized surfaces (immersed submanifolds) that satisfy a
geometric constraint (that are lagrangian). Because we require our
generalized surfaces to satisfy this constraint many new difficulties
arise. However our solutions often have interesting and important
geometric properties. This problem has many features in common with
problems in nonlinear elasticity. It is hoped that our techniques
will be of use in that subject. However it should be emphasized that
optimization procedures in the presence of geometric constraints have
not been studied before. This idea will eventually be useful in many
different contexts.